A Human-Computer Interaction Laboratory for Undergraduates

This project is improving the quality of instruction in computer science by providing students with a powerful environment in which to learn the basic principles of human-computer interaction (HCI) when developing software. It also allows them to experiment with new techniques in developing the HCI component of a software project. With this lab, students are able to concentrate on the user interface aspects of a project. They gain experience with modern user-interface software development tools as well as with a wide variety of hardware input and output devices. One additional important component of this lab is the development of systems for special populations, such as the physically handicapped. This laboratory project exposes students who wish to pursue careers in industry to the skills that are in high demand. In addition, it prepares students who wish to go on to graduate school to engage in advanced research projects.